Ultrapurification of Biomacromolecules

The remarkable recent advances in genetic engineering now allow industrial-scale production of therapeutic proteins for human health care. With the introduction of new production methods have come immense purification challenges. In order to avoid untoward side effects of contaminants (many of which are as yet unknown), therapeutic proteins must be ultra-purified to levels beyond the scope of present technology. Thus, there is a great need for novel separation and purification techniques which may be applied on an industrial scale. This multi-investigator study is an effort to integrate several innovative technologies ısuch as High Performance Liquid Chromatography, (HPLC), electrophoresis, and supercritical-fluid based separations! to provide a basis for industrial ultrapurification of biomacromolecules. Applications of such new purification and separation technologies will be tested on recombinant tissue plasminogen activator, a life-saving therapeutic used in the treatment of heart attack victims.